GPS Investigation of the North America-Caribbean Plate Boundary

9316181 Mann The PI will participate in a collaborative research program to investigate the rate and direction of motion of the Caribbean and North American plates, as well as the intervening geologic terrains in the northeast Caribbean. The PI and collaborators will reoccupy the sites previously occupied in 1986, and analyze their new data to determine plate and microplate motions during the intervening years. In this way they will obtain new information relating to the driving forces for plate motions, changes in local continental margins and associated sea-level changes, strain partitioning between the plates and microplates, fault slip rates, and seismic hazard along the major fault zones. ****